CAREER: A Multi-Method Longitudinal Exploration of Elementary Students' Mathematics Affect and Achievement from Grades 2 through 5

Students’ mathematics affect and achievement are strongly correlated. Research has shown that students’ mathematics affect and achievement tend to decline throughout schooling with significant dips occurring in the upper elementary grades. These trends are concerning because students’ mathematics affect and achievement influence their decisions to pursue STEM majors and careers, and their future experiences in school. To date, there has been little longitudinal evidence exploring how affect and achievement influence each other over time. In addition, research has not clearly explained how in-school and out-of-school factors influence students’ development of mathematics affect and achievement. This project aims to examine why and how learners experience changes in their mathematics affect and achievement over time in elementary school by drawing on a large-scale longitudinal dataset as well as collecting longitudinal data on students’ lived experiences. An intended outcomes is to provide critical information about how learners develop positive mathematics affect and achievement, which can in turn enhance their STEM education experiences and future careers choices.

Using a multi-method longitudinal approach, quantitative data from the Trends in International Mathematics and Science Study 4th-grade longitudinal dataset (TIMSS-L) are used to examine reciprocal relationships between mathematics affect and achievement, in addition to classroom-level factors that influence these outcomes. Variables include 4th-grade students’ self-reported interest and confidence in mathematics, teacher-reported questionnaire items about their practice, and relevant covariates. Data will be analyzed using structural equation modelling techniques. At the same time, the researcher will recruit a sample of second graders, their parents, and their teachers from one purposefully selected elementary school to participate in a longitudinal study and communicate their experiences related to mathematics affect and achievement over four years. The researcher will interview these students, their parents, and their teachers at multiple time points across the four years (Grades 2-5) to explore why and how students’ mathematics affect and achievement changes over time. This project has potential to lead to critical insight about the role of home, school, and individual factors on students' mathematics affect and achievement. Longitudinal qualitative analysis techniques will be used to explore changes over time. The study will contribute to the field by providing guidance to teachers, parents, and school leaders on how to reverse negative trends related to learners’ mathematics affect and achievement.

This project is supported as a CAREER award through the EDU Core Research (ECR) program. The ECR program emphasizes fundamental STEM education research that generates foundational knowledge in the field. Investments are made in critical areas that are essential, broad and enduring: STEM learning and STEM learning environments, broadening participation in STEM, and STEM workforce development.